Workshops on Personnel Data Needs and Criteria in the Sciences

The grantee will conduct three workshops to examine data needs and criteria for identification of scientific personnel in three principal areas: the physical sciences, including mathematics and computer sciences; the life sciences; and the social and behavioral sciences. These workshops will lay the groundwork for the survey data collecting activities on scientific personnel during the decade of the 1990's by the National Science Foundation. The workshops, comprised of representatives from the professional societies, industry, academe and government, are essential to identifying important data issues and requirements for the inclusion of personnel in existing as well as newly-emerging scientific fields. Information on the Nation's scientists and engineers (S/E's) is developed by the National Science Foundation through its Scientific and Technical Personnel Data System (STPDS). This System provides numbers as well as demographic, educational, employment, and geographic characteristics of U.S. scientists and engineers. These data are collected by three major NSF biennial surveys: the Survey of Doctorate Recipients; the National Survey of Natural and Social Scientists and Engineers; and the Survey of Recent Science and Engineering Graduates.